Protein-Protein Interaction Involving The Cellular CREB and Viral px Proteins

This proposal is to study the interaction of a cellular trans- cription factor, the protein CREB, and the hepatitis B transacti- vating factor, the protein px. Cellular genes are transcribed when transcription activators react with specific DNA sequences. When viruses infect cells, immediate early viral genes are transcribed in order to obtain expression of other virus-encoded genes. CREB is a leucine zipper protein, which also contains a specific DNA- binding region, px is unable to bind DNA, but the px-CREB protein- protein complex is able to bind to a variant CRE-like site present in the viral genome. The interactions between CREB and px will be studied using CREB site-directed mutants expressed in and purified from bacterial systems, and CREB-specific polyclonal antibodies. The mechanism of recognition of the variant CRE-like site will also be determined. %%% In order to have transcription of cellular DNA, proteins called transcription factors bind to sequence-specific portions of DNA; one such protein is called CREB. When viruses infect cells, some of their genes are transcribed; one protein product is called px. When these two proteins interact, the complex can interact with a viral DNA binding site very similar to the cellular DNA binding site, that the two proteins separately cannot interact with. This allows synthesis of further viral proteins. This proposal is to examine the factors that allow the two proteins to interact, using mutant CREB proteins and antibodies to CREB. The mechanism of recognition of the viral DNA binding site by the protein complex will also be determined.